Mathematical Sciences: The Geometry of BRST Symmetries

9303215 Schmid The research entails an investigation into classes of anomalies arising in quantum field and string theory. The intended classification of the underlying principles, employing a variety of techniques drawn from global analysis and topology is hoped to shed new light on a number of perplexing questions studied in modern physics.